(SGER) A Novel Approach for Calibration of Hydrologic Models Using Multiobjectives and Visualization Techniques

9415437 Sorooshian The classical approach to model calibration has been taken as far as it can go. Currently available calibration strategies are poorly suited to the task of calibrating conceptual hydrologic models in general and are woefully inadequate in the face of the emerging generation of distributed parameter hydrologic models. An entirely new conceptual paradigm is necessary for further progress to be made. The work will explore the use of multi-objective procedures for the objective identification of the non-dominated model set, and graphical visualization techniques to facilitate the subjective procedure inherent in choosing a reduced model set. The exploratory research will lead to the preparation and submission to NSF, within 9 months of a full scale proposal addressing the problem of calibrating semi-distributed and distributed hydrologic models within the framework of the new paradigm.